STEM Sea, Air, and Land Remotely Operated Vehicle Design Challenges for Rural, Middle School Youth

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

The North Florida Community College project provides middle school students in a high poverty rural area in Northern Florida an opportunity to pursue post-secondary study in STEM by providing quality and relevant STEM design. The design challenges will be contextualized within a rural region (i.e., GIS mapping and drones used for surveying large ranches, farms, and forests), producing a series of six design challenge modules and two competition design challenges with accompanying teacher guides for preparing relevant STEM modules for 90 middle school aged students. The project will integrate 4 components: (a) engineering design, (b) technology and society, (c) electrical knowledge, and (d) computer science. The project aims to improve middle school students' spatial reasoning through experiences embedded within engineering design challenges. competition design challenges with accompanying teacher guides for preparing relevant STEM modules for aged students
Collaborative partners consisting of school level, college level, and STEM professionals will develop the design challenges, using best practices from STEM learning research, with the intent of advancing STEM pathway awareness and participation among historically underserved students in the rural, high-poverty region served by North Florida Community College. Data regarding student outcomes will be collected before and after implementation, including measures of content mastery, spatial reasoning skills, self-efficacy, attitudes and interests in STEM, and academic achievement in science courses Assessment of the data will involve the research and development phases of six curriculum modules and (2) an intervention study following a delayed-treatment design model

There is a growing need for the increased broadening of STEM by underserved groups. By increasing the number of rural students who participate in STEM hands on, interdisciplinary experiences, the project has the potential to expand interest and competency in mathematics and science and expand the number of students who are aware of STEM career pathways
This award reflects NSF's statutory mission and has been deemed worthy of support through evaluation using the Foundation's intellectual merit and broader impacts review criteria